Phantom Bursting Models and Complex Bursting Patterns in Pancreatic Islets

Bertram
The investigator and his colleagues study the behavior of
insulin-secreting pancreatic beta-cells. These cells display a
wide range of complex dynamics that are best understood with the
aid of mathematical modeling and analysis. The investigator has
recently developed a new mathematical model for beta-cells that
postulates an intracellular calcium subspace compartment located
between the endoplasmic reticulum and the cell membrane. This
model is based on recent data from a collaborating lab, and is
being further developed as new experiments are performed. One
direction of development involves the investigation of complex
electrical bursting patterns that are often observed in
pancreatic islets and isolated beta-cells. The investigator
determines, through mathematical modeling, whether these complex
rhythms are due to oscillations in glycolysis -- that is, whether
the coexistence of a membrane-driven bursting oscillator and an
endogenous glycolytic oscillator is consistent with the published
data, and with data from collaborating labs. One key question
that is addressed is whether these oscillators involving
glycolytic rhythms can be synchronized by electrical coupling.
This is a necessary condition since beta-cells are electrically
coupled in islets. Finally, the effects of stochasticity through
channel noise are investigated in both single-cell and islet
models. Channel noise is evident in the electrical patterns of
single beta-cells, and suppression of this noise through
elecrical coupling may play a key role in the more regular and
slower bursting patterns observed in islets.
The study of pancreatic islets, composed of beta-cells, is
important for a number of reasons. From a clinical viewpoint,
they are key players in normal glucose homeostasis. Because
beta-cells are the only cells in the body that make and secrete
insulin, their malfunction leads to type II or late-onset
diabetes, the most prevalent form of the disease. To understand
what makes the cells malfunction, one must first understand their
normal functioning, which is the primary aim of this work. From a
biological viewpoint, beta-cells are of great interest as the
focal point of a number of biochemical and cellular processes.
They are similar in many ways to neurons, but have more complex
biochemical regulatory mechanisms. Thus, information gained from
the study of beta-cells largely transfers over to neurons, as
well as other secretory cells. Finally, from a mathematical
viewpoint, beta-cells display rich dynamics that can only truly
be understood with the aid of mathematics. Modeling and anlysis
of beta-cells has led to new mathematics, most of which can and
is being applied to the study of other bursting nerve and
endocrine cells. The investigator involves graduate and
undergraduate students in the project, providing them with
research opportunities at the important interface between
biological and mathematical sciences.